Nonlinear Hamiltonian PDE

The proposed research is designed to advance the recent progress on nonlinear
Hamiltonian PDE towards three goals:
1. Extend the local-in-time initial value methods to solve more complicated
PDE.
2. Adapt the initial value techniques to treat initial-boundary value
problems.
3. Construct a global-in-time theory of nonlinear Hamiltonian PDE.
The proposal identifies specific problems whose solutions contribute
to the three goals for which there are
methods of attack emerging from the last decades' spectacular progress.
The studies for Goal 1 aim to extend the sharp 1-dimensional calculus
techniques for proving multilinear estimates in Bourgain's Xs,b spaces
by carrying out an incremental research plan, involving
small Xs,b denominators, spatial anisotropy and vanishing parameters.
A technique for recasting initial-boundary value problems as initial
value problems with boundary forcing has recently been developed, in
collaboration with Kenig. The range of applicability of this method is
the main topic of the proposed investigations toward Goal 2. A
reinterpretation of the L^2 conservation law for the KdV equation, obtained
in collaboration with Keel, Staffilani, Takaoka and Tao, has led to a new
method for showing global wellposedness by constructing almost conserved
quantities using multilinear harmonic analysis and the local wellposedness
machinery. The third thrust of the proposed research will exploit these
quantities to understand the long-time behavior of nonlinear Hamiltonian PDE.

No specific scientific or engineering application motivates the proposed
studies; rather the intention is to contribute toward a general rigorous
theory of nonlinear phenomena including turbulence, singularity formation,
scattering and recurrence. The widespread applicability of Hamiltonian PDE,
across diverse fields of current scientific and technological significance,
demonstrates the central prominence of the proposed research to our
science and engineering infrastructure.

The proposed research is designed to advance the recent progress on nonlinear
Hamiltonian PDE towards three goals:
1. Extend the local-in-time initial value methods to solve more complicated
PDE.
2. Adapt the initial value techniques to treat initial-boundary value
problems.
3. Construct a global-in-time theory of nonlinear Hamiltonian PDE.
The proposal identifies specific problems whose solutions contribute
to the three goals for which there are
methods of attack emerging from the last decades' spectacular progress.
The studies for Goal 1 aim to extend the sharp 1-dimensional calculus
techniques for proving multilinear estimates in Bourgain's Xs,b spaces
by carrying out an incremental research plan, involving
small Xs,b denominators, spatial anisotropy and vanishing parameters.
A technique for recasting initial-boundary value problems as initial
value problems with boundary forcing has recently been developed, in
collaboration with Kenig. The range of applicability of this method is
the main topic of the proposed investigations toward Goal 2. A
reinterpretation of the L^2 conservation law for the KdV equation, obtained
in collaboration with Keel, Staffilani, Takaoka and Tao, has led to a new
method for showing global wellposedness by constructing almost conserved
quantities using multilinear harmonic analysis and the local wellposedness
machinery. The third thrust of the proposed research will exploit these
quantities to understand the long-time behavior of nonlinear Hamiltonian PDE.

No specific scientific or engineering application motivates the proposed
studies; rather the intention is to contribute toward a general rigorous
theory of nonlinear phenomena including turbulence, singularity formation,
scattering and recurrence. The widespread applicability of Hamiltonian PDE,
across diverse fields of current scientific and technological significance,
demonstrates the central prominence of the proposed research to our
science and engineering infrastructure.